Increased Functionality and Accessibility of the ETE Database

The Evolution of Terrestrial Ecosystems computerized Database is designed to allow broad-scale comparisons of the paleobiology and paleoecology of terrestrial ecosystems and their plant and animal communities. In particular, research interest in this project focuses on making detailed comparisons on a locality-by-locality basis of paleocommunity structure, paleovegetation, and paleoenvironments, and on tracing patterns in biological structural change in terrestrial ecosystems throughout geologic time. Such studies require the synthesis of large amounts of information currently scattered throughout a vast literature or lying unpublished in museum collections, and are difficult to undertake using the available information resources within paleontology. The current award will support the purchase of new hardware and modifications in existing software. The specific goal is to migrate the project to a more standard version of UNIX running on a modern, high-performance workstation and to re-write the Graphical User Interface to be compatible with X Windows standards. This will immediately allow increased performance and functionality at sites were the database is currently being compiled and used (the Smithsonian and UCSB). It will also allow access to the database by multiple users on a wide variety of remote computers.